Resonance Raman Studies of Electron-Nuclear Coupling, Time Resolved Dynamics, and Magnetic Perturbations of Biomolecules

Champion
Sage
MCB 9904516.

This research project utilizes resonance Raman scattering and its time domain analog, femtosecond coherence spectroscopy (FCS), to probe the electronic and nuclear structure/function relationships of biological molecules such as heme proteins (myoglobin, hemoglobin and cytochrome c) and photosynthetic systems (light harvesting antenna and reaction centers). Related techniques, such as electronic absorption and infrared spectroscopy, will also be utilized, and theoretical models that account for the experimental FCS measurements will be developed. FCS signals, induced by rapid photoinduced biochemical reactions, will be used to extract key parameters that quantitatively model the level crossing dynamics describing the reaction. Variations of external conditions such as temperature, viscosity, and magnetic field will be used to probe the effects of protein relaxation and spin-state selection rules on the reaction dynamics. Use of site directed mutants and chromophore replacements will probe the effect of protein amino acids and chromophore peripheral substituents on the FCS signals. Quantitative studies and comparisons of field and reaction driven coherent motions will be carried out using variations in laser pulse shape, optical carrier frequency, and monochromator detection frequency. Measurements of the relative phases of the oscillatory signals will be used to test for the presence of intermediate spin-states on the Fe-L dissociation pathway. Heme-ligand binding and dissociation reactions involving NO, CO and O2 will be compared. Further experimental and theoretical studies involving the dynamic effects of protein distributions and conformational interconversions will be carried out. Laser mediated thermal perturbations will be followed using pump induced changes of the Stokes and anti-Stokes Raman scattering.

Overall the project's objectives are to achieve a better understanding of the optical properties of biological molecules, both in and out of equilibrium, and to apply this knowledge to elucidate their mechanism of action. These studies are significant not only in their relationship to the biological sciences, but also in their connection to the understanding of basic light-matter interaction associated with complex systems in the condensed phase. This project is supported by the Molecular Biophysics Program in the Division of Molecular and Cellular Biosciences in the Directorate for Biological Sciences and the Divisions of Physics and the Office of Multidisciplinary Activities in the Mathematical and Physical Sciences Directorate.